A Multidisciplinary Graphics Design Laboratory

The proposed multidisciplinary graphics design laboratory (MGDL), provides terminal-based, interactive instruction in courses of five academic departments: Industrial, Electrical, Mechanical, Biomedical and Engineering Core. The facility includes ten high-resolution workstations, and twenty-five medium-resolution terminals, networked to a Digital Equipment Corporation, VAX 4000 central computer, with its supporting disc memory and interconnect peripherals. The applications software chosen for the MGDL provides advanced analysis, design, and graphic visualization capability and has the greatest impact on the upper level, design course instruction, and on the special senior research/design program. The MGDL's capabilities are also used to assist high school teachers in upgrading their technical skills and knowledge of modern engineering laboratories and educational methods.